Development of Networked Workstations for Undergraduate Electrical Engineering Laboratories at Bucknell University

A laboratory based on "Networked Engineering Workstations" is being developed to provide an environment which encourages students to focus on concepts and material, equipment which actively assists in learning, and which eliminates computational impediments in the laboratory. This environment provides an opportunity to learn practical and theoretical control, instrumentation and data collection/analysis by providing computer (Dell 386SX) based instruments (IEEE-488 oscilloscopes, spectrum analyzers and microprogrammer emulators). In this environment students write to learn, integrate theory and practice at a high level using software packages (Lotus spreadsheet, Matlab). They implement complex designs in signal processing, control systems, electronics, linear systems and instrumentation courses using the control system simulation and design package (Tutsim).The equipment is used throughout the Electrical Engineering curriculum, and throughout Bucknell in all courses offered in control systems, instrumentation, and courses in digital design and introductory engineering.